Inaugural Gordon Research Conference on Natural Gas Hydrates

Methane gas hydrates are ubiquitous in arctic regions and in continental margin marine sediments. They are important archives of methane and are extremely sensitive to changes in temperature and pressure, making them potentially important in terms of assessing greenhouse gas emissions and continental margin slope stability. This award facilitates the participation of graduate students, postdocs and others in the four-day long inaugural Gordon Research Conference on Natural Gas Hydrates at Colby College in Maine. The workshop brings together a diverse group of scientists from academia, the government, and industry. It focuses on building bonds between researchers in these different sectors and provides a venue for them to discuss geochemical, geophysical, microbiological, and hydrological issues related to natural gas hydrate formation and destruction. Broader impacts of the work include increasing knowledge of a potential important alternative energy resource and host mineral of a strong greenhouse gas (methane). Special efforts will be made and funds are allocated to increase the participation in the workshop of women and other groups under-represented in the sciences.